Multidisciplinary Optical Science and Engineering CRCD Program at NJIT

Abstract: EEC-9527491, New Jersey Institute of Technology, PI-Dr. Anthony Johnson: This award provides funding to the New Jersey Institute of Technology for support of a Combined Research Curriculum Development Program entitled, "Multidisciplinary Optical Science and Engineering CRCD Program at NJIT". The CRCD program emphasizes the need to incorporate exciting research advances in important technology areas into the upper level undergraduate and graduate engineering curricula and stimulates faculty researchers to place renewed, equal value on quality education and curriculum development. This three year program will institute complementary applied optical science and engineering courses at NJIT which will (1) provide a unified, multidepartmental optical science/engineering curriculum and (2) emphasize optics courses which will provide laboratory and classroom training to undergraduate and graduate students in emerging areas of industrial and national importance.